RUI: Characterizing Energy-Minimizing Knots

Rawdon
The investigator, collaborators, and students study
different knot energy functions and their optimal configurations.
Specific topics include: characterizing the shape of ropelength
minima; finding relationships between the optima of different
energy functions; studying polygonal energy optima as a function
of the number of edges; determining the role of flexibility in
pulling knots tight and in packing them efficiently; exploring
the structure of polygonal knot space near ropelength minima;
determining relationships between different notions of polygonal
ropelength.
From the massive knots of cosmic strings to the microscopic
tangling of DNA, knotting and tangling are a part of nature. One
physical attribute of a type of knot is its minimum ropelength
(i.e. the amount of one-inch radius perfectly flexible rope
needed to tie a configuration of the given type of knot). The
idea of ropelength has been used by biologists, physicists, and
mathematicians to predict the packing of helical DNA, the speed
at which knotted DNA moves through gel, and the average shape of
a knot within a large population of different configurations.
What is so special about ropelength-minimizing conformations that
they predict the behavior of real physical knots? What spatial
attributes influence this behavior? Furthermore, real physical
materials have inherent limitations, such as resistance to
bending. How does one incorporate inflexibility into
mathematical models of macromolecules? How does the flexibility
of the material affect how the knot tightens and how long lengths
pack into small spaces? In particular, can this knowledge be
used to design knot-making materials that are both strong and
resistant to slipping? The investigator, collaborators, and
students study these fundamental questions about knotting and
tangling in real physical systems. These studies lead to a
deeper understanding of tangled structures present in
nanotechnology and biotechnology and to better models of knots
made with real physical materials.